Mathematical Sciences: Constrained Variational Bicomplexes

9403788 Anderson The research concerns the study of the variational bicomplex and its applications to differential equations and conservation laws in mathematical physics using differential-geometric and topological techniques. Particular attention will be paid to the Euler-Lagrange complex in the setting of the modern theory of the calculus of variations. The methods are applicable to analyzing the Einstein vacuum equations. They are also applicable to to many systems of partial differential equations which arise in mathematical physics and theoretical mechanics. ***